Spectroscopy and New Insights on Planetary Nebulae

Aller, Lawrence 9416985 Aller has obtained high dispersion spectra (360-1005nm) of planetary nebulae with the Hamilton Eschelle spectrograph at Lick Observatory from earlier NSF-supported research. His group will document and publish these spectra so they are available to the general astronomical research community. ***